Experimental and Computational Studies of Viscoelastic Flow

Complex flows of viscoelastic fluids are to be modeled theoretically and experimentally. The approach is a synthesis between large scale numerical simulations and high spatial and temporal resolution experiments. The validity of constitutive models is to be explored, with application to realistic and cost-effective three-dimensional predictions of industrially relevant polymer flows.